CAREER: On-Demand Modulation of Single-Molecule Reactivity via Engineered Nanoscale Coupling

With support from the Chemical Structure and Dynamics (CSD) and Chemical Measurement and Imaging (CMI) programs, Professor Shaowei Li of the University of California-San Diego is investigating how the local surface structure and nanoscale environment control the chemical reactivity of individual molecules. Chemical reactions on surfaces underpin technologies ranging from catalysis to semiconductor manufacturing, yet most experiments measure billions of molecules at once, masking the unique behavior of any single one. At the smallest scales, tiny variations in the arrangement of surface atoms, local electric fields, or nearby molecules can dramatically change how chemical bonds vibrate and break. Watching specific chemical bonds is exceptionally challenging because it requires imaging atoms within a molecule while simultaneously detecting their vibrational motion. Professor Li and his students will combine a scanning tunneling microscopy (STM) with vibrational spectroscopy to observe and manipulate the motion of atoms in single molecules with sub-molecular precision. Their discoveries could advance our fundamental understanding of surface chemistry and enable new strategies for controlling chemical reactions at the atomic scale. The project will also contribute to the development of a STEM workforce by providing interdisciplinary training in nanoscience and quantum measurement.

The project will employ STM-based vibrational spectroscopy to characterize bond-resolved vibrational fingerprints of individual molecules adsorbed on well-defined surfaces. By systematically tuning molecule–substrate interactions, tip-induced electric fields, coordination geometry, and charge transfer, the team will quantify how local potentials reshape vibrational energy landscapes and reaction coordinates. The research further explores strong coupling between molecular vibrations and other quantum degrees of freedom, including intermolecular vibrational coupling and vibrational polariton formation within the confined optical cavity of the STM junction. These studies aim to create hybrid eigenstates that selectively enhance or suppress specific reaction pathways, providing a platform for bond-selective control of surface reactions. Together, these efforts integrate high-resolution spectroscopy, atomic-scale manipulation, and quantum-state engineering to establish a predictive framework for understanding and controlling chemical dynamics in nanoscale environments.